Development of an Interactive Tutorial on Statistical Design and Analysis of Experiments

Interdisciplinary (99)

An interdisciplinary team from the Departments of Chemical Engineering, Mathematics, and Curriculum and Instruction is designing and creating an interactive, Internet-based tutorial resource that is teaching chemical engineering students how to statistically design and analyze experiments. The tutorial is being collaboratively produced with ongoing testing and evaluation during the developmental process. The tutorial contains four standalone informational modules covering randomization, blocking, factorial designs, and regression modeling. A fifth module contains two on-line case studies that the students may work through to more fully test their comprehension of the concepts. Chemical Engineering students are testing the product, and the results are being evaluated based on the guidelines published by the American Evaluation Association. The outcomes are being disseminated nationally.